Block Travel Grant: Second International Conference on Computational Stocastic Mechanics, June 12-15, 1994, Athens, Greece

Spanos 9412576 This project Supports travel to the Second International Conference on Computational Stochastic Mechanics to be held in Athens, Greece on 13-15 June 1994. this conference aims to be a forum for bringing together the two fields of computational and stochastic mechanics. It will provide a unique opportunity for exchanging ideas on the status of computational methods as they are applied to stochastic analysis of a broad spectrum of problems of theoretical and applied mechanics. the conference theme encompasses: Boundary Elements Aerospace Engineering Control Earthquake Engineering Differential Equations Environmental Engineering Fatigue and Fracture Geotechnical Engineering Finite Elements Hydraulic Engineering Monte Carlo Simulation Marine and Offshore Engineering Optimization Structural Engineering Random Fields Transportation engineering Reliability Vehicle Engineering Vibrations Wind Engineering